Undergraduate Faculty Enhancement Program Design for Manufacture

The workshop familiarizes engineering undergraduate faculty with recent developments in the design of new products for manufacture (DFM). Several tools and methods, including customer-driven engineering, product rating for assembly based on part geometry or assembly motions, and the use of the manufacturing process capability for setting the tolerance limits for new parts are presented and discussed with classroom and laboratory exercises.